Studies of the Optimal Use and Economic Value of Weather andClimate Information

The overall objective of this research is to investigate the optimal use and economic value of weather and climate information. Static and dynamic models of decision-making situations that are sensitive to weather and/or climate information, together with appropriate economic, models, will be used to study these use/value issues. The research focuses on the formulation, analysis, and application of such models, and on the evaluation of the use and value of various types of meteorological information - and the assessment of quality/value relationships for such information - in particular decision- making problems. Specific objectives of the research relates to important extensions of previous work including: (a) formulation and application of decision-making models in situations involving the simultaneous consideration of short-term and long-term strategies and/or short-term and long-term strategies and/or short range and long-range information; (b) the analysis of the effects of decision makers' risk preferences on the use and value of meteorological information; and (c) the development and application of methods of obtaining market level estimates of the overall value of such information to producers and consumers. Both prototype and real-world applications will be examined. This project is important because it should provide more realistic models of weather/climate sensitive decision-making situations, more credible results concerning the use and value of meteorological information, and more reliable characterizations of quality/value relationships for such information.